SBIR Phase I: Cryopreservation of Clam Larvae

Cryopreservation permits the storage of larvae of the clam Mercenaria mercenaria for extended periods with negligible losses. The objectives of this Phase I research are: (1) To determine the efficacy of selected cryoprotectants in preserving trochophore and veliger larvae, and (2) to assess effective freezing and thawing rates of cryopreserved clam larvae. Techniques previously employed in cryopreservation of oyster spermatozoa, larvae of marine mussels, nematodes, and sea urchins will be screened. Selected cryoprotectants and procedures will be applied to test survival and development competency of clam larvae. Effective cryopreservation methods will be further tested for applicability in commercial scale culture facilities.